Mathematical Sciences: The Mathematical Sciences Applied to Materials Science

This award partially supports a study by the Board of Mathematical Sciences of the National Research Council to: (1) identify and describe areas where the mathematical sciences have significantly aided materials research; (2) identify areas of the mathematical sciences in which increased research would accelerate progress in materials sciences; (3) identify obstacles, if any, to increased collaborative research; and (4) make recommendations for facilitating collaborative work, including recommendations on how to attract students and young investigators to this area. Particular attention will be paid to the areas of materials synthesis and processing. An interdisciplinary committee of the Board of Mathematical Sciences will perform the study. In addition to National Science Foundation support, this project will be supported by the Air Force Office of Scientific Research and the Army Research Office.